Variational Methods for Material Defect Evolution

Larsen
DMS-1009653

The investigator studies the evolution of defects in
materials (e.g., fracture, damage, dislocation plasticity) using
a progression of models from global minimization-based
quasi-statics to full dynamics. Global minimization models are
now well understood, but very little is understood in the more
physically realistic settings of local minimization-based and
dynamic problems. Specifically, existence is open for both
cohesive and sharp-interface (Griffith) dynamic fracture, and
effective macro-scale models for local minimization-based
dislocation plasticity are unknown. The investigator seeks to
make significant progress on these and related problems.

The propagation of defects in materials is of obvious
fundamental importance, yet in the most physically realistic
settings mathematical foundations and analysis are lacking,
leaving engineering models largely ad hoc. The investigator
works on developing mathematical support in these areas, leading
to improved models, better understanding of solutions, and
improved (and justified) algorithms for computing simulations.